Hadronic and gluonic excitations using improved lattice simulation technology

0073362
Fiebig
Research in theoretical nuclear physics will study excitations of
the nucleon, exotic mesons and baryons containing excited gluons,
bound states of gluons known as glueballs, and the interactions in
two hadron systems using computer simulations of quarks and gluons.
These systems should provide vital clues about quark confinement
which is of central importance in our attempt to understand the
strong nuclear force. The project goals relate in large part to the
scientific mission of the Thomas Jefferson National Accelerator
Facility.